SGER: Investigating Tradeoffs Between Security and Privacy in Overlay Distributed Systems

One important problem in peer-to-peer (P2P) overlay distributed systems is
to enforce the trust of the data stored in the system, and protect the
security and privacy of the peers. However, current research addresses
this problem in two directions with independent efforts: privacy and
security. In the privacy direction, researchers focus on proposing
anonymity protocols to hide peers' identities and on how to prevent the
attackers from revealing peers' identities. In the security direction, one
major research focus is to detect the identities of peers who are
suspicious to disturb normal operations in P2P systems intentionally or
unintentionally. If a peer can absolutely hide his/her identity, the
anonymity protocol can be possibly abused to threat the Internet security.
Increasing peers' privacy means increasing the difficulties to ensure
security. In this project, the PI conducts research to understand and
provide solutions on balancing the tradeoffs between privacy and security
in P2P systems. Specifically, (1) the PI develops anonymity communication
protocols to provide privacy protection for P2P users with security
insurance; (2) taking overlay distributed denial-of-service and file
integrity as case studies for security issues, the PI develops technical
security solutions without conflict with privacy requirements; (3) the
research investigates a wide range of security issues by developing
security solutions to balance tradeoffs of privacy and security. This
project is integrated to a Microsoft sponsored undergraduate course
development, where important topics of networking security and privacy,
design of decentralized P2P systems are being studied.
----------------------------------------------------------